Phylogeny, Development, and Taxonomy of Setaria and its Relatives

The cereal crops foxtail millet and pearl millet, and noxious weeds
such as green foxtail and sandbur are all closely related members of the
grass family, and are part of a group of 310 species descended from a
single ancestor. These plants are all characterized by odd "bristles"
interspersed among their flowers; the bristles are highly modified
branches. This project will determine the precise relationships among as
many species as possible in the "bristle group" using DNA sequences from
the nucleus and the chloroplast. At the same time, the development of the
seed head (inflorescence) and flowers will be studied for a precise
description of how the species differ. Along with this, the graduate
student supported on the grant will determine how many species are in the
foxtail millet group, what the species look like, and will write
identification guides to them. Because there is already information on
the species in North and South America, this part of the project will focus
on Asia and Africa.
The information gained in this project will connect directly with
other information already available on foxtail millet and the panicoid
grasses. The genes that control morphological variation in foxtail millet
are under active investigation, and some of these are similar to known
genes in maize. It should soon be possible to describe morphological
variation in the clade in terms of the genes involved. This will help
answer questions about how species and larger groups are formed. The
resulting study will provide a direct and explicit link between phylogeny,
developmental morphology, and taxonomy, and will provide a framework for
work on the evolution of development